Liquid Crystals of Nanonucleic Acids: Hierarchical Self-Assembly as a Route to Prebiotic Selection, Templating, and Autocatalysis

Non-technical: This award by the Biomaterials program in the Division of Materials Research to the University of Colorado Boulder is to develop a chemical process, which is referred to in the proposal as "liquid crystal autocatalysis." This project explores as the mechanism for the appearance of nucleic acids in the prebiotic era. This proposal is expected to develop the understanding on how a "Liquid Crystal (LC) World" preceded the nucleic acid world by providing its basic molecular design and feedstock. Within the liquid crystal phase, duplex-forming nano-nucleic acids are held in end-to-end contact to a structure that catalytically promotes their chemical ligation, and this forms the basis for an autocatalytic feedback loop. The outcomes from these studies could have potential in offering new tools for in situ synthesis of nucleic acid-based nanotechnology, and potentially leading to a whole new platform for nano-controlled nucleic acid, and assembly/disassembly of nucleic acids for different applications such as drug/gene delivery, bioderived motors, etc. The proposed educational broader impact activities will help to inspire high school students in STEM, and would provide valuable undergraduate research opportunities.

Technical: The proposed research program will be focusing on exploring the features of this ancient Liquid Crystal (LC) World and especially its capacity for providing the molecular feedstock for the nucleic acids (NAs) world. The research will diversify the input chemical stock for starting the LC World by exploring liquid crystal autocatalysis under successively more primitive and diverse initial conditions, beginning with ultra-short duplexing NAs down to single bases, and evolving to mixtures of homologs made with proposed prebiotic synthetic or chemical degradation schemes, with the goal of understanding the robustness of liquid crystal autocatalysis in the presence of chemical noise. This award will develop the ability of liquid crystal autocatalysis to narrow molecular diversity to generate homogeneous polymer populations such as the nucleic acids. This project will also explore the potential of the LC World for producing nucleic acids with chemically and catalytically active secondary structures, by feeding liquid crystal autocatalytic systems with mixtures of nanonucleic acids that incorporate randomness in sequence and lengths. This approach will enable development of strategies for making chains capable of adopting a secondary structure. This project will investigate the evolution of nucleic acid populations starting under varying conditions of randomness in thermal cycling and ligation, searching for specific subpopulations of sequences or folding motifs. Finally, new strategies will be explored for catalytic ligation and chemical stabilization of self-assembled DNA. This path has definite potential for technological novelty, offering new tools for in situ synthesis in the hugely expanding field of NA-based nanotechnology, and potentially leading to a whole new platform for nano-controlled NA chemistry.